U.S.-European Regional Workshop on Dynamics and Control of Nonlinear Uncertain Systems; Vienna, Austria; July, 1993

9221500 Udwadia This award supports ten U.S. engineers to participate in a U.S.-European workshop on dynamics and control of nonlinear uncertain systems. The small meeting will be held in Vienna, Austria, in July 1993. It is co-organized by a group of U.S. and Austrian engineers, principally Drs. F. E. Udwadia of USC and Hans Troger of the Technical University of Vienna. Approximately one- third of the participants are engineers at early stages of their research careers. Special effort was taken to involve experts from Russia and Eastern Europe, since there is substantial activity there in this field. The purposes of the meeting are to familiarize these participating representatives of the pan- European and American research communities with each other's work, and to promote collaboration among them in future research. The subject of this workshop has significant implications for manufacturing systems. Rapid development of technology requires increased precision and robustness in mathematical modelling of the relevant phenomena. This requires going beyond the methods of Classical Control Theory and advancing the frontiers of Analytic and Qualitative Nonlinear Dynamics in Control. Effective design and control of modern dynamical systems, such as robotic manipulators, demand models that recognize their full non linearity and allow for the influence of bounded uncertainty. A formalism developed by the Russian Liapunov offers just that. There is a very strong Eastern European network of researchers building on his work. They had very little contact with the West until very recently, so this meeting will accelerate the diffusion of their valuable research in Western Europe and the U.S. ***